Enhanced Simulation Methods for Biomolecular Systems

9405405 Lybrand Two research projects related to bimolecular simulation method development and application will be performed. The first project focuses on development, implementation, and evaluation of simulation methods for enhanced configurational sampling in molecular dynamics and free energy perturbation calculations of biomacromolecules. This project is closely related to goals outlined in the High Performance Computing and Communications (HPCC) initiative, and involves modification of the popular bimolecular simulation program AMBER for parallel executive on clusters of high performance Unix workstations as well as massively parallel supercomputers. We are using the PVM tool kit from Oak Ridge National Laboratory for distributed parallel processor coordination and support. Since PVM has now been optimized for a number of massively parallel machines including Cray T3D, Kendall Square KSR-2, and IBM SP1, this approach permits us to develop a highly portable, yet computationally efficient parallel version of AMBER that will run on both workstation clusters AND massively parallel supercomputers with little or no modification. As we develop the parallel version of AMBER, we are also implementing and testing new algorithms for free energy perturbation calculation. These algorithms utilize variational path optimization methods and other "scaling" techniques to improve configurational sampling, and thus, convergence and reliability, for free energy perturbation calculations. These enhanced molecular simulation programs will be applied to studies of lipid bilayer assemblies and bilayer/peptide complexes. These bimolecular systems are large and quite complicated, and detailed molecular simulations are extremely computationally demanding. Results from these simulations will be useful in analysis of companion experimental studies for lipid bilayer/peptide complexes currently under way, and may provide useful information for design of novel bioseparation and small molecule delivery systems. %%% Computer simulation has become a powerful tool for study of complex biological molecules such as proteins, nucleic acids, and lipids. Computer simulation studies can aid in the analysis and interpretation of experimental results, and can be used to predict properties that cannot be measured directly. While computer simulation studies often yield quite accurate results for simple molecular systems, the enormous size and complexing of biological molecules poses much greater challenges. Biological molecule simulation studies are usually classified as Grand Challenge computation problems, and require new methods and strategies as outlined in the High Performance Computing and Communications (HPCC) initiative for successful resolution. We will develop and evaluate a number of enhanced simulation techniques that should improve the efficiency and reliability of computer simulation methods for the study of biological molecules. Included in this project is the modification of a current state-of-the-art molecular simulation program (AMBER) to run efficiently on a wide variety of different of different massively parallel supercomputers and clusters of high performance computer workstations. This modified version of AMBER will enable more efficient and effective use of currently exiting computational resources for molecular simulations. These molecular simulation tools are of general utility in computer-aided design for catalysts, drugs, and polymers. We will employ these enhanced molecular simulation tools to study lipid bilayers and bilayer/peptide complexes of importance in basic biochemistry and biotechnology applications such as biosensors and bioseparations applications. ***